In vivo cloning of defined chromosomal segments into YAC vectors

This project seeks to develop technology that will bypass the need for genomic walking over long map distances in those cases where the gene to be cloned has been mapped between two restriction fragment markers in an RFLP map of the organism. The size limit of the clonable region will not be determined by the usual limitations of in vitro cloning because the procedure will involove targeted in vivo genetic recombination between Arabidopsis chromosomes and specialized Yeast Artifical Chromosome (YAC) vectors. The central idea is to clone a defined genetic interval of large physical size in a single step into a YAC vector by cell fusion and in vivo homologous recombination. %%% The development of this technology will enhance the ability of scientists using Arabidopsis as a model to clone the entire genome in much less time than is now predicted.